International Conference on Orbis Scientiae - 1998 Confluence of Cosmology, Massive Neutrinos, Elementary Particles and Gravitation, Fort Lauderdale, Florida

9876464
Kursunoglu
The conference Orbis Scientiae 1998, to be held in Ft. Lauderdale, Florida, December 17-21, 1998, will cover several very timely topics in elementary particle physics. A particular focus will be the physics and astrophysics of massive neutrinos. The conference will provide for the very important exchange of ideas among leading scientists in the field.